Joint Continental Dynamics/JOI Workshop: Interplay of Collisional Tectonics and Late Cenozoic Glacial Climate in Alaska and the Northeastern Pacific Ocean

0237008
Gulick

Given the growing interest within the scientific community to use the Gulf of Alaska to study tectonic-climate interrelationships, this award will support a workshop to develop a strong synergistic science plan. The workshop will be jointly funded by the National Science Foundation (Continental Dynamics Program) and the Joint Oceanographic Institutions (JOI). The workshop will bring together scientists representing the fields of tectonics and geodynamic modeling, terrestrial and marine observational geophysics, GPS-based geodesy, glaciology, marine geology and glaciomarine sedimentation, micropaleontology, palynology, paleomagnetics, paleoclimatology and paleo-oceanography.
***